REU Site: Technologies for Community-Driven Design

Communities around the world face complex challenges such as extreme weather, affordable housing shortages, unequal access to education and healthcare, and the impacts of social media. These problems cannot be solved by experts alone—they require collaboration with the people most affected by them. This project develops new tools and approaches that help communities work together to better understand problems, explore possible solutions, and make informed decisions. The program brings together multiple research efforts to create technologies that support community participation in areas such as data visualization, health monitoring, citizen science, and collaborative online spaces. Undergraduate students will take part in this work through a summer research experience, where they will learn how to design and build tools with community members, not just for them. Insights will also be shared across the different faculty-led projects towards building collective knowledge on processes and technologies for community engagement.

Participants will work in teams with faculty, graduate students, and community partners on real-world projects. They will gain hands-on experience conducting research, building prototypes, and communicating their ideas. Weekly workshops will provide training in research methods, computing skills, and responsible use of artificial intelligence. Students will also receive mentoring and guidance on graduate school and careers. Hosted by the interdisciplinary Design Lab at UC San Diego, this REU Site will support nine undergraduate students each year in a nine-week summer program. By working on meaningful societal challenges, students will develop the skills and experience needed to pursue careers in computing and design with real-world impact. Research Experience for Undergraduates interns will interact with external partners on ongoing initiatives and have the potential to publish in fields related to human-computer interaction, civic computing, and information science.